Acquisition of Plant Growth Chambers

Funding for controlled environment plant growth rooms is requested. There room will provide consistent experimental material for plant biochemical and molecular biological studies. Research will include: investigation on flowering and the role of photoperiod-regulated genes, isolation of photoperiodically- regulated genes form the Japanese morning glory plant, and overall gene regulation studies.